Curatorial Upgrade of the Zoology Section of the University of Colorado Museum

The Zoology Section of the University of Colorado Museum (UCM) contains the largest vertebrate and non-entomological invertebrate collections in Colorado, with geographical strengths in the Rocky Mountains and Great Plains regions, and particular taxonomic strengths in molluscs, amphibians, and reptiles. The university's increased commitment to the Zoology Section (and the UCM as a whole) is evidenced by the creation of new positions for a Curator of Vertebrates and a Collection Manager, both of which were filled within the last four years. The current project will continue enhancements of the Zoology Section's research and teaching functions by augmenting the current inadequate specimen storage facilitaties, and eliminating the remaining specimen backlog. Specifically, the project will (1) obtain 46 museum cabinets and 25 shelving units to house the backlog and inadequately housed catalogued specimens, and account for collections growth over the next decade; (2) increase the Collection Manager position from 75% to fulltime in order to process the backlog in the next two years. A permanent fulltime Collection Manager will allow the collections to be maintained properly, speed computerization of the specimen database, and increase access to the collections. This project will maintain the physical integrity of the Zoology Section's holdings, provide access for researchers and educators to the currently inaccessible backlog, facilitate access to specimens already catalogued, and, through dissemination of the results of the project, increase awareness of the Zoology Section in the research community. The proposed enhancements of the section are in accord with the recommendations of a recent Institute of Museum Studies Collections Assessment Program review. In addition, the curators of the various Sections within the UCM have recommended that priority be given to the Zoology and Paleobiology Section. Finally the project is especially timely because of the up coming move of the Zoology Section to a newly renovated building, planned for the year 2001; the move will be facilitated by the presence of appropriate storage facilities for all specimens, and by elimination of the specimen backlog.